Analysis of ULF Pulsation Data from Ground and Satellite Magnetometers Using a Multiuser Microcomputer System

This project provides computer equipment for the analysis of geomagnetic pulsations observed in magnetometer data from various satellite and ground-based observatories. The instrumentation will alleviate a significant limitation of current efforts by providing a small, multiuser computer system compatible with those currently in wide use in this field. The principal investigator has collaborated with The Johns Hopkins University Applied Physics Laboratory in analysis of satellite magnetometer data. He is developing ultra-low frequency (ULF) wave display and analysis software for the magnetometer data from several operating satellites as well as future missions. Past and current work at Augsburg College, in collaboration with scientists at several institutions, has resulted in a variety of contributions to the understanding of ULF pulsations in the earth's magnetosphere, and contributes to the education and research experience of undergraduates who later pursue graduate study and/or careers in science and engineering. The major application of this effort (waveform analysis) is particularly well suited to undergraduate student research. Applications include reduction and analysis of data obtained from the South Pole, and participation in the Space Physics Analysis Network. This project continues a strong undergraduate research program, increases its productivity, and enables additional qualified students to participate.